"The Making of an Engineer" -- An Engineering Experience Course for High School Students

The University of Denver seeks to provide enrichment experience in engineering for 50 students in a three-week commuter/residential Young Scholars Program. The participants will be students entering grades ten, eleven, and twelve. Programmatic activities will include all engineering disciplines, however, special emphasis will be on electrical and mechanical engineering. The project activities, which include research, career exploration, and ethical issues, are designed to encourage high school students to elect a career in engineering.